SPAR: Synergistic Program Analysis and Restructuring

This project investigates the introduction of ambitious program analysis and program restructuring techniques into automatic program optimization systems, with the goal of significantly improving the quality of code produced by compilers for modern computer architectures. Although a variety of compiler optimization techniques exist, they are not used to their full extent in production compilers because, the analysis and transformations are computationally intensive. In addition, the information obtained by analyses must be maintained and updated across the various compiler passes and program transformations. The project relies on the previous work on ``sparse'' data flow frameworks and explores three methods for overcoming the current limitations to using ambitious program analyses in production compilers: (1) decomposing a dense data flow framework into an interconnected set of sparse data flow frameworks, (2) selectively computing and using costly information on behalf of a particular program optimization. and (3) integrating program analysis and transformation.